Parallel Computation of the Dynamics of Evolution in Multi-Locus Genetic Systems

9310155 Lewontin This award will support the research that uses the unique power of parallel computing to provide a general picture of the dynamics of genetic frequency change in multi-locus genetic systems with recombination and selection considered simultaneously. The actual dynamics of the transient will be analyzed by mapping out the vector fields for gametic frequencies and following the changes in the conformation of these fields as the selection and recombination parameter are perturbed systematically. ***